FRG: Collaborative Research: Semidefinite optimization and convex algebraic geometry

The goal in this proposal is to develop the mathematical foundations and
associated computational methods for the study of convex sets in real
algebraic geometry. This work requires a combination of ideas and
mathematical tools from optimization, analysis, algebra and combinatorics.
The proposed program will lead not only to theoretical insights, but also to
new algorithms and software that will enable novel applications in
mathematics, engineering, and beyond. The work is organized in five main
thrusts: semidefinite programming and sums of squares, convex semi-algebraic
sets, sparsity and graphical structure, numerical polynomial optimization
and applications, and deformations and variation of parameters. The PIs will
focus on the development of a comprehensive theory and practical new
algorithms for convex sets defined by polynomial inequalities. Specific
problems and techniques include the formulation of semidefinite descriptions
of convex hulls of real algebraic varieties, determinantal representations
of hyperbolic polynomials, sparse polynomials and their symmetries, tropical
geometry and homotopy techniques, and geometric programming.

Many areas in mathematics, as well as applications in engineering, finance
and the sciences, require a thorough understanding of convex sets. This is a
class of geometric shapes, with several different but complementary
interpretations. The goal in this project is to achieve a better
understanding of how these geometric properties emerge from their algebraic
descriptions in terms of polynomial equations, and the corresponding
computational implications. One of the main motivations is the possibility
of applying these results in the context of optimization. The proposed
research will contribute to existing knowledge, both in algebraic-geometric
techniques as well as in mathematical optimization. It will create synergies
between different branches of applied mathematics, and their engineering and
scientific applications (e.g., in computational biology and statistical
modeling). Successful completion of this project should contribute to the
availability of efficient and reliable computational tools for solving
polynomial systems, which have clear technological and economic interest.
Other key features of this proposal include its integration with curriculum
development, undergraduate research projects, training of graduate students
and postdocs, and the development of new software tools for computational
optimization.